Collaborative Research: Modeling and Analysis of Advanced Parking Management for Traffic Congestion Mitigation

Parking is a growing problem in dense urban areas. To many, finding a parking space in these areas is an unpleasant experience of uncertainty and frustration. Cruising for parking makes traffic on already-congested urban streets even worse and leads to significant waste in time and fuel. In transportation, smartphone-based parking management applications have emerged. These applications help drivers find parking spaces by allowing them to use smartphones to view real-time availability and prices of parking spaces and guide them to open parking spaces, reserved or otherwise. This award develops theoretical foundations and methodologies for analyzing these emerging parking management services. Results from this research provide a better understanding of the impacts of advanced parking management services on parking competition and travel patterns. The research develops policies to reduce traffic congestion and emissions in dense urban areas. This award positively impacts engineering education by offering new materials and case studies and engaging underrepresented student groups in research.

Using game-theoretic, dynamic and stochastic programming approaches to investigate both temporal and spatial travel patterns with advanced parking management, this project generates a set of analytical tools that explain the underlying working mechanisms of advanced parking management services and gauge their potential for reducing traffic congestion. The theoretical efforts in this research are complemented by an agent-based simulation, which tests the validity and applicability of the theories, and unveils complex outcomes of parking competition under realistic parking search behaviors. This work advances the knowledge and analysis of parking management and enriches the literature of modeling morning commute and vehicle routing.